U.S. - France Cooperative Science: Conference on Computer Algebra and Differential Equations Conference, Grenoble, France, May 1988

A joint U.S. - France workshop entitled "Computer Algebra and Differential Equations" will be held in Grenoble, France from May 24 to May 27, 1988. The organizing committee consists of Jean Della Dora, Evelyne Tournier (both of the TIM3 Laboratory at Grenoble) and Michael F. Singer (at North Carolina State University in Raleigh, N.C.). In recent years, there have been several advances in the theory of formal solutions of differential equations. These have included deeper understanding of power series, asymptotic and closed form solutions of differential equations and difference equations. At the same time, computer algebra systems have become more and more sophisticated and offer the opportunity to automate these ideas. The present workshop is planned to allow workers in computer algebra to learn of the theoretical developments and at the same time make the researchers in theoretical areas aware of questions arising in the design of computer algebra systems. Professors B. Malgrange, J.P. Ramis and M.F. Singer will deliver a series of expository lectures on various aspects of formal solutions of differential equations and there will also be a few additional short talks. Time will be allowed for the participants to study the material presented as well as hold informal discussions. Attendance will be limited to about 50 people; 25 from France and 25 from the United States. By limiting the attendance the organizers hope to enhance the conditions leading to a fruitful exchange of ideas. Academic Press has agreed to publish the proceedings of this conference.